MRI - Development of Continuum: A Virtualized Attentive Environment for Amplified Collaboration

This project, developing The Continuum, a cyberinfrastructure instrument that unifies high-resolution computer-enhanced group collaboration workspaces with arrays of ambient sensors, aims to enable users to collaborate with local and remote colleagues and their data more effectively utilizing a War room to benefit the collaboration. The room itself is given the ability to anticipate needs, improve interaction, and focus the time on discovery rather than the technology. Continuum serves as a digital assistant providing a foundation for new computer science research, benefits global scientific collaboratories. War rooms benefit collaboration because they support continuous interaction and awareness of team members, enable persistent information sharing, and encourage mobility among team members and information. A computer enhanced war room, such as The Continuum, which 1. Connects distributed teams with their data (whether stored in the cloud or streamed from major computational resources over high-speed networks), 2. Supports persistent digital artifacts, 3. Enables ultra-high-resolution 2D and 3D stereoscopic digital media to be simultaneously viewed, and 4. Supports ubiquitous and intuitive interaction, creates a powerful and easy-to-use information-rich environment in support of scientific discovery. Just as NSF cyberinfrastructure produces greater volumes and varieties of data from data storage systems, online instrumentation and major computational resources like XSEDE and Blue Waters, advanced visualization instruments serve as the 'lenses' of these data generators (similar to the telescopes and microscopes of yore), enabling researchers to peer into cyberspace to manage, access and analyze big data.

Continuum is the culmination of a quarter century of experience at the institution developing interactive instruments, from the original CAVE in 1992, to the ultra-high-resolution LambdaVision tiled LCD wall in 2004, and the hybrid-reality CAVE2 in 2012. Each new generation of visualization instrumentation provided scientific communities with more advanced features. Continuum development focuses on three areas: 1. Transforming passive display walls that respond to user commands into attentive display walls that monitor the users in a room and anticipate their needs to improve their experience; 2. Providing an alternative approach to constructing high-resolution visualization display walls using thin-border 4K passive stereo Organic Light Emitting Diode (OLED) displays that have impressive brightness, contrast, uniformity, off-axis viewing, and low reflectivity in brightly lit rooms; and 4. Utilizing cloud computing to prototype future Continuum spaces that do not require local high-end compute and display resources. Twelve funded research projects from local institutions, in Astronomy, Astrophysics, Biology, Combustion, Geophysics, Neuroscience, Pathology, Physics, Psychiatry, and High Performance Computing, are poised to use Continuum for their data visualization needs. The Continuum will open up new opportunities in computer science research at the intersection of large-scale data visualization, human-computer interaction, and high-speed networking. Continuum will also directly support 10 classes taught in the UIC Computer Science, Art and Design, and Biomedical Science departments.